Active Galactic Nuclei, Quasars, and Primeval Galaxies

This award funds one of the leading young observers, a specialist in spectropolarimetry, for studies of active galactic nuclei, quasars, and primeval galaxies. A variety of observational techniques will be used to probe the hidden cores of active galaxies and to detect just forming primeval galaxies at very high redshift. These efforts, if successful, will greatly extend our understanding of the extreme conditions in the hearts of radio sources and in the very early universe.